An Undergraduate Laboratory for Computational Chemistry

9451790 Bondeson A new computational laboratory within the Department of Chemistry is being equipped in order to allow students to perform molecular modeling experiments, to tackle complex mathematical problems describing real systems, and to observe protein dynamics of biomolecules. The laboratory centers on the speed and versatility of computer workstations and powerful software for modeling actual chemical systems. Rather than creating a new course, we are incorporating modeling into several existing courses, beginning with introductory chemistry for science majors. Our intent is to increase general retention in science and particular interest in chemistry. Students are becoming more and more familiar with the sophisticated software as they progress through their educational careers and are developing a high degree of proficiency and independence in the use of the laboratory. Students are using this laboratory both in guided exercises and in self-paced and more independent projects. Questions of "What if...?" and "How come...?" are posed and addressed once the student appreciates the power as well as the limitations of computational approaches. We feel strongly that these tools for investigation are allowing our chemistry majors to develop their creativity by relieving some of the mathematical barriers and giving them a ready environment to test their own ideas. In this way, our students are being better prepared both for careers in industry and also for graduate school as they look to the future.